Total Passive Assembly of Rigid Parts

9424603 Sturges This project will extend the ability of automated machines in assembly of three dimensional components using what is termed a spatial remote center compliance (SRCC) device. This passive device, like its two dimensional counterpart, the remote center compliance, does not require active feedback control for these tasks. The engineering problem and objectives are to design and build SRCC's that can handle non-axisymmetric prismatic parts of arbitrary cross section and general shapes with a segmented insertion path. In handling these problems, the basis for analysis is identification of the contacts in three dimensions, i.e., point, line or surface. The kinematics of these contacts can be used to determine the dexterity requirements, leading to a design that can handle the proposed three dimensional assembly tasks. Assembly remains a costly, error prone, and ubiquitous process, and automatic systems using active feedback control can be slow and costly. Results from this project will provide a robust and cost effective solution to these important quality and productivity problems. ***